Americas Program Planing Visit for a Collaboration on Functional Materials Between the United States, Argentina and Brazil

0635336
Garcia-Garibay

This planning visit award will provide travel support to Drs. Miguel A. Garcia-Garibay, Heather Maynard and Jeffrey Zink, University of California, Los Angeles, to work with Dr. Pedro Aramendia at the Universidad de Buenos Aires in Argentina and Dr. Munir S. Skaf at the Universidade de Campinas in Brazil, on a proposal to be submitted to NSF. The project they are developing will deal with challenges in the areas of high throughput, versatile, fast, and cheap sensing in the biomedical and the environmental areas. They will also look at the bottom-up design of molecular functional devices and the basic molecular aspects of signal transduction, amplification and control, which are essential in biosystems and artificial information storage and readout. The immediate value of this visit, is that by bringing these researchers together for face-to-face discussions, a stronger proposal can be designed, written and submitted.

This planned research project will tackle an important area of research, while bringing together a diverse group of researchers from three countries.